Interdisciplinary Research Training Group on Mechanisms of Plant Evolution

This is a unit of DOE/NSF/USDA Collaborative Research in Plant Biology Program. The research training group focuses its research theme on molecular evolution of plants. The long-range goal of the program is to encourage greater interaction and cooperation among faculty members in plant molecular genetics, population genetics, systematics, plant anatomy, and evolutionary biology, and to develop plant biologists who have the capacity to conceive, design and implement research that integrates the concepts and techniques of multiple facets of plant molecular evolution. The program involves faculty members, postdocs, graduate students and undergraduate students. The group will focus their research efforts on studies of: (1) genome evolution: the genetic architecture of plant genomes, (2) genome genealogies within and among plant species, and (3) evolutionary interpretation of plant structure and genome organization.